CRCNS data sharing: Central facility and services

Proposal No: 0749049
PI: Friedrich T. Sommer

Award Abstract:

This award supports services and infrastructure for sharing of computational neuroscience data as part of an exploratory activity aimed at catalyzing rapid and innovative advances in computational neuroscience and related fields. The core facility will provide transparent access to shared resources in a manner that scales up to large data sets. Services will be designed to lessen the burden on contributors to make their data or other resources available and to optimize the ability of the user community to identify and use those resources. Community- and market-oriented mechanisms will be developed to identify resources of particular significance for the field, and to solicit feedback from relevant communities. It is anticipated that the availability of high quality data will offer unprecedented opportunities for new types of discoveries, development of new methods, and development of new interdisciplinary collaborations. This new activity will also assist and drive teaching in computational neuroscience, through the exchange of datasets, stimuli, and analysis and modeling tools among modelers, experimentalists, and students.